Engineering Prep: A Model School-To-Work Curriculum to Support A.T.E. Programs in Semiconductor Manufacturing

The Hillsboro School District, working in partnership with Portland Community College, has developed an excellent precollege program called "Engineering Prep" that can serve as an effective precursor to A.T.E. programs in semiconductor manufacturing. This project supports replication of the Engineering Prep Program, locally and nationally, through the publication of curriculum materials, faculty enhancement workshops to equip high school teachers and community college faculty to implement the curriculum in their communities, and follow-up consultancies to each implementation site. Disseminable products will include a curriculum guide and classroom-ready instructional materials to teach the Engineering Prep Program. These products, combined with the teacher and faculty enhancement workshops, will enable quicker implementations of precollege programs for associate and baccalaureate degree programs in semiconductor manufacturing and related engineering programs.